Modeling of RC/SRC Systems with Flexibility-Based Models

9520282 Spacone The main objective of this project is to develop a set of realistic models for the nonlinear static and dynamic analysis of composite frames. A full comprehension of the behavior of composite structures is still to be achieved. The behavior of composite members involves complex phenomena such as the partial bond transfer between steel and concrete subjected to cyclic loadings. The ability to understand and model this behavior is important for the evaluation of existing civil infrastructure systems as well as for the design of new structures. A novel frame element formulation based on the flexibility method of structural analysis will be made: The new formulation is effective in modeling the nonlinear response of reinforced concrete frames subjected to seismic inputs. The new formulation offers several advantages over classical stiffness formulations. The new formulation will be applied to formulate new member models for composite beams and SRC columns. These models will include the effects of partial bond between steel and concrete under large element deformations. It will also consider both nonlinear material and geometric effects. A small series of experimental tests on SRC columns will be performed to better understand the behavior of composite columns and to calibrate the new analytical models. The proposed models will be validated through a set of correlation tests, using advanced identification- optimization techniques. Finally, a set of parametric tests on small scale composite frames under both quasi-static cyclic loadings and input ground motions will be conducted. The flexibility-based models investigated here in this project will lead to a reliable assessment of the state-of-health and safety of existing civil infrastructure systems. The new models can be used as a research and practical tool for attaining a better understanding of the complicated behavior of composite frames, wh ich can eventually lead to the development of improved design procedures. This is a project supported under the year 1 program on the Civil Infrastructure Systems initiative NSF 94-145. ***